Project ICAN: Inquiry, Context and Nature of Science

9911734
LEDERMAN

This proposal, sponsored by Oregon State University, will carry out a five-year leadership program in secondary science which, over the life of the project, will impact 400 teachers, mostly in schools in rural Oregon. In a three-week summer program the project staff will teach participating teachers content knowledge, supervise teachers in current research projects, practice techniques for using inquiry in the classroom, demonstrate techniques of using technology in the classroom in support of science inquiry and work with teachers to develop appropriate pedagogy. During the academic year the teachers will receive support from project staff to help them implement the program and to help them work with colleagues. Each year a cadre of teachers, designated as mentor teachers, will be selected from the participants to work with other teachers in the project for the duration of the activities. Thus, by the end of the project a substantial number of the workshop teachers will have significant mentoring experience. All teachers in the project will be supported in the schools as they implement inquiry techniques in their classrooms.